RUI: Electric Field Induced Periodic Deformations in Nematic Liquid Crystals

9704579 Garg Factors affecting the electric field induced modulated phase in a nematic liquid crystal will be systematically probed by: (I) studying the modulated phase at different applied electric field frequencies; (2) determining electric and magnetic field values of stability for the different wave vectors; (3) detecting flow directions in the system; (4) measuring electrical conductivities of the samples as a function of frequencies; (5) exploring cell geometries to understand the influence of boundary conditions at the electrodes and the electric field configuration on the homogenious Freedericksz and periodic transitions. A more accurate theoretical model will be developed to describe the modulated phase. %%% The study of reorientational phenomena under applied electric fields in a confined geometry and the dependence of modulation between phases as a function of field frequency are important physical phenomena that determine the overall properties of new liquid crystal systems that are playing an increasingly important role in applications areas that include, for example, new materials for infrared and microwave liquid crystal modulators, and fast-switching liquid crystal displays. ***